Collaborative Research: CNS Core: Medium: Softwarizing Millimeter-wave Radio Access Networks (RANs) at the Edge

Emerging applications in augmented reality, connected autonomous vehicles, and industrial IoT systems impose demanding requirements on next-generation mobile networks that can hardly be met alone with radio resources below 7 GHz. Therefore, 5G and beyond networks have embraced radios operating in millimeter-wave (mmWave) frequency bands, which offer 25 times or more bandwidth worldwide. On the other hand, mmWave radio networks require the dense deployment of infrastructure nodes to achieve desirable coverage, because mmWave radio signals suffer from high propagation loss and are vulnerable to blockage and mobility. Unfortunately, mmWave infrastructure nodes, e.g., gNodeB in 5G, are made of specialized, dedicated hardware and as a result, their dense deployment would incur formidable capital and operational cost. The goal of the proposed project is to reduce the cost of mmWave radio infrastructure nodes by softwarizing their radio access network (RAN) functions and serving them from data centers close to end users, i.e., edge data centers, therefore facilitating network densification. More importantly, it will allow for previously impossible flexibility in network implementation and configuration as well as efficiency in resource allocation across the network and the edge data center. At the societal level, this project will fuel the ongoing revolution of mobile network virtualization and accelerate the development and deployment of next-generation network systems.

The key insight toward addressing the challenges associated with softwarizing mmWave RANs at the edge is to exploit the massive data parallelism inside the mmWave baseband and its inherent structures, with programmable hardware in all domains. The project targets the following scientific contributions in three interrelated research thrusts. (i) A low-latency software realization of the mmWave physical layer for commodity server clusters suitable for edge deployment. (ii) Adaptive RAN configuration and in-network compression schemes that cope with the limited fronthaul capacity in practice, without substantially increasing the cost of mmWave infrastructure nodes. (iii) Novel sensing and imaging schemes based on mmWave radio signals intended for communications. These include sensing with a single mmWave infrastructure node and sensing that leverages multiple coordinated mmWave nodes to achieve previously impossible coverage and resolution.